RIPS Type 1: The Interdependence of Built, Social and Information Infrastructures for Community Resilience: A Participatory Process

This project supports foundational research that explores and creates collaborative processes to foster community resilience. Current approaches that characterize resilience are engineering-based and predict possible infrastructure damage in the face of acute and/or chronic stressors. When resilience is more broadly reframed as the interdependence between the built, social, and information infrastructures, engineering and statistical models of infrastructure damage benefit from an adaptive and participatory approach that is effective, inclusive, and fair. It is hypothesized that participatory processes of model-building lead to community ownership, social learning, and capacity building, all of which contribute to resilience. Within the one-year time frame of this study, a framework is developed using the case study of 2013 flooding events in Boulder, Colorado. The Boulder case is used to explore and test the modeling and participatory processes, to generate a new understanding that can be transferred to other communities. The project provides a platform for team-building and formalized collaboration of cross-disciplinary expertise, while training a cohort of scholars, students and practitioners, who can bridge across disciplines and between research and practice to create usable science and models to foster resilience.

This research develops the conceptual framework and methodological approaches to marry physical and participatory processes for designing, modeling, and evaluating resilient communities. The study explores and test innovative, inclusive, and adaptive processes through which community stakeholders engage in and contribute to model development. At the same time, advanced predictive engineering-based models of interdependent built infrastructures are developed and piloted by the team. In-situ and participatory empirical research and design, combined with new forms of digital participation, generate a new understanding of inclusive development and delivery of predictive models. The novel integration of physically-grounded model development with participatory action research that engages stakeholders helps the development of predictive models of interdependent infrastructures in a larger, more realistic, and inclusive context.